VLSI-ULSI Parameter Computation

This research is on three dimensional modeling methods for predicting performance and characteristics of VLSI-ULSI circuits and devices. The focus is on: (1) efficient computations of capacitances and inductances in three dimensional configurations of on-chip and off-chip interconnection lines; and (2) feasible and accurate computations of threshold voltages in three-dimensional simulations of MOSFETs. The former computations are needed for assessment of delay times in off- chip interconnection lines. The latter computations are needed when modeling pulse propagation through MOSFET circuits. The approach is to use infinite electrical network theory to simplify the computation of coupling between interconnection lines and adjacent devices. This theory leads to efficient numerical methods, including domain contraction techniques, which yield more powerful computation algorithms. Professor Zemanian is an outstanding researcher with a solid record of accomplishment over the past decade in both applied mathematics and electrical network theory. His approach to difficult problems in IC design is novel and backed by solid theory and mathematical results. He is very likely to continue first class research. The research approach to the topic of modeling electrical properties in VLSI-ILSI circuits, is high-risk, high-payoff for an important problem. The problem is a high priority within the Design, Tools and Test Program.